New Alliances for Academic and Industrial Cooperation: A Program of Regional Roundtables

9420907 Slakey The American Physical Society will continue a series of regional "Roundtables" which will bring together academic and industrial scientists and administrators to identify critical scientific issues that directly address the economic and educational challenges facing each region. The meetings will also foster cooperation in research and education. ***